CISE Research Instrumentation: Equipment for Diverse Computer Architecture Research

9729839 Uht, Augustus K. University of Rhode Island Research Instrumentation: Equipment for Diverse Computer Architecture Research This research instrumentation grant enables three distinct research projects: - Realizing Instruction Level Parallelism in the 10's - A New Spectrum of Hierarchical Storage Architectures for High Performance Disk I/Os - Ultra-Dependable and High-Performance Distributed Computing while seeking to improve computer performance in many dimensions: uni- or micro-processors, I/O (Input/Output) systems, and multiple-computer systems. Further, the reliability of multiple-computer systems is to be enhanced. These objectives are to be achieved by using the new instrumentation equipment (multiprocessor and multiple-disk RAID storage system) in several different ways. First, the Levo research prototype uniprocessor is to be designed and simulated on the new multiprocessor. The latter will serve to verify Levo's implementation and measure its performance, as well as to allow Levo's construction, establishing that uniprocessors can be designed to execute an order-of-magnitude more instructions per cycle than current uniprocessors. Second, since I/O constraints can limit overall performance, the novel Disk Caching Disk (DCD) I/O system is to be realized on the new multiprocessor and RAID equipment, demonstrating factors of 2 to orders-of-magnitude performance improvements of the DCD architecture. Lastly, the Active Nodal Task Seeking (ANTS) distributed computing system achieves high performance and ultra-dependability in a coarse-grain environment. The new ANTS kernel is to be realized on the new multiprocessor, showing that the same can be achieved on fine-grain applications.